Space Weather: HeI 1083 nm Signatures of Coronal Mass Ejections on the Solar Disk

The investigators seek to discover the evolutionary sequence of events leading to the initiation of coronal mass ejections (CME) occurring on the solar disk, guided by what has been learned about mass ejections from the solar limb. This is of basic importance to Space Weather, as the coronal mass ejections producing geomagnetic storms occur primarily on the disk of the sun, whereas those occurring on the limb are more easily observed due to the dark background. The main effort is to define signatures of disk coronal mass ejections in ground based data, specifically full disk images of the neutral helium absorption line at 1083nm, based on detailed comparison with other ground based observations supplemented by ultraviolet and x-ray images obtained from spacecraft.